Tenth International Congress on Catalysis - Group Travel

Travel support for approximately 20 researchers is provided to enable them to attend the Tenth International Congress on Catalysis to be held July 19-24, 1992, in Budapest, Hungary. The recipients are selected by a panel of industrial managers appointed by the Catalysis Society of North America.